U.S.-Taiwan Geotechnical Engineering Collaboration

9415353 Mayne The objective of this US/Taiwan Workshop is to nurture cooperation in geotechnical issues between the engineering /research communities in both countries.. Focus will be on three themes of mutual interest associated with infrastructure development. The selected themes include Tunneling, Deep Foundations, and Ground Modification. State of the art methods of topics that contribute to the main themes' advancement will be emphasized, such as in situ testing, risk assessment, physical, analytical and computational modeling and advanced technologies. This proposal is a collaborative effort between University of Massachusetts-Lowell and Georgia Institute of Technology. It is expected that the Workshop will lead to involvement of industry, government agencies and universities in :1. technology transfer, 2. cooperation of infrastructure development, 3. research projects associated with respective research agencies of both countries. ***